SHF: Small: Architectural Synthesis for Programmable Accelerators

Targeted acceleration of functionality in hardware has shown great promise to bring in orders of magnitude improvement in computational capability for a broad range of applications such as artificial intelligence, autonomous vehicles, web search, and virtual reality. However, it is incredibly time consuming and costly to manually design a hardware accelerator that is both high performance and easily programmable for software. This project aims to develop new design automation framework that can automatically generate a high-quality programmable accelerator from architecture specifications defined in a software program.

This project builds on the recent advances in high-level synthesis, which is capable of compiling un-timed behavioral specifications into cycle-accurate register-transfer-level circuits. In contrast to conventional high-level synthesis approaches, the proposed framework generates domain-specific instruction-programmable accelerators as opposed to application-specific fixed-function hardware. This research provides a new class of hardware synthesis infrastructure that integrates domain-specific languages, combinatorial optimization algorithms, and data-driven machine learning capabilities to achieve high quality of results on par with those produced by human experts.